Conference on Mathematical Sociology in Japan and America (Honolulu, Hawaii; June 23-25, 2000)

This proposal supports travel and lodging at a conference to be held in Honolulu June 23 - 25, 2000. It permits five or six advanced graduate students in Sociology from PI's institutuion (UCLA) to attend the first international conference on mathematical sociology. Co-sponsors are the American Sociological Association's Section on Mathematical Sociology and the Japanese Association for Mathematical Sociology.

In addition to the usual intellectual and professional benefits to students from attending a conference, this one presents several unique opportunities. Japanese sociologists have developed a considerable body of theoretical literature in mathematical sociology, published in Japanese journals. Most of that work remainis un-translated and unavailable in the West, so it is only through personal meetings such as conferences that American students can be exposed to this work. The conference also will foster international contacts that we hope will lead to future collaborations, exchanges, and employment opportunities for the students involved.